Collaborative Research: Data Management for MG&G: Tools for Archiving, Analysis and Visualization

This project is a workshop focused on developing a coordinated data management strategy for the marine geology and geophysics community. The goals of the workshop are to: educate the MG&G community about current data management efforts and possible models for future efforts, define the data management problems that face the MG&G community, and define the parameters for solutions to the problems.